Vectorial Beam Propagation Method

Given the recent development in integrated optics and optoelectronics, it is important to develop computer-aided simulation, analysis and design tools for the these device and systems. A vectorial beam propagation method will be developed as compared to the current scaler beam method where the polarization characteristics of the optical field are neglected. The vectorial beam propagation method VBPM to be developed will be applicable to optical structures of arbitrary structural geometry and anisotropic media of arbitrary inhomogeneity.